Existence of Strain Gradients in Pseudomorphic InzGa (1-z) As/GaAs Material Grown Using Molecular Beam Epitaxy

To systematically investigate the existence of strain gradients in pseudomorphic InGaAs grown on GaAs using molecular beam epitaxy (MB). It is possible to simultaneously lattice-match InA1As with InGaAs and energy-match InA1As with A1GaAs. This permits a test structure where the bandgap discontinuity is independent of the strained interface. In the first experiment, several InGaAs/InA1As/GaAs single quantum well structures will be grown using MBE. The location of the quantum well within the strained region will be varied such that the quantum well serves as a probe to measure the strain. Several sets of samples will be grown with different thicknesses of the strained layer. The second experiment duplicates the first except the strained region will be kept substantially below the minimum critical thickness. This permits all of the test structures to be grown in the same sample for comparison purposes. After growth, the strain will be measured by using photoluminescence to detect strain-induced band shifts. If the hypothesis of strain gradients in pseudomorphic InGaAs material is confirmed, then this project will have significant impact on the design and fabrication of pseudomorphic MODFET (HEMT) devices.